SGER: Hurricane Isabel Impacts on Chesapeake Bay

Hurricanes are natural events that can impose a major perturbation to estuarine
ecosystems. Some effects of previous hurricanes on Chesapeake Bay (e.g., Agnes in
1972) had lasting impacts on submerged aquatic vegetation (drastic decrease) and on
fisheries (e.g. soft clam and oyster decline after Agnes). This SGER (Small Grant for Exploratory Reserch) project will examine
the effects of Hurricane Isabel on the hydrographic and food-web structure of
Chesapeake Bay.
Hurricane Isabel, which struck Chesapeake Bay on September 18,
2003, provides a unique opportunity to document and evaluate effects of a significant
.disturbance event.. Winds in excess of 70 mph vigorously mixed Bay waters. A storm
surge, 6.12 ft at the Bay mouth took 18 hours to move up the Bay to Baltimore where
maximum water level was 7.36 ft above mean high water. This significant intrusion of
shelf water redistributed salt, plankton and fish within Chesapeake Bay. The 2003 Water
Year (WY), which includes rainfall associated with Isabel (Oct . Sept) represented the
highest WY freshwater input to Chesapeake Bay since 1937. The passage of Isabel
during the unusually wet 2003 provides a unique opportunity to evaluate effects of a
major perturbation on already enhanced freshwater input to the Bay ecosystem.
The project will involved a 7-day cruise in early November, 2003 in which the same
sampling procedures are followed that were designated during the six TIES years (1995-
2000) and two BITMAX years (2001-2002) thus providing an essential contrast to
conditions that observed in the wake of Hurricane Isabel. Investigators will intensively measure the hydrographic and ecosystem structure of the main stem of
Chesapeake Bay. On leg 1 (3 days) they will conduct continuous mapping using a towed
undulating recorder and surface mapping system which measures temperature, salt,
oxygen, chlorophyll and zooplankton (Optical Plankton Counter) along a 350-km axial
transect down the main stem of Chesapeake Bay and with up to 24 cross-Bay transects
spaced 10 km apart. The vertical and horizontal resolution of these measurements will be
approximately 1 m and 200 m, respectively. Maps of physical and biological properties
will provide an essential background for the hydrographic, plankton and fish surveys that
will follow. On the second leg (4 days) they will conduct hydrographic stations (CTDs)
and measurements of nutrients, phytoplankton biomass and production, zooplankton
pump and acoustic measurements, and fish abundance/distributions (Tucker trawl and
midwater trawl) on 26 Bay-transects. CBOS moorings, including the damaged stations,
will be maintained through the interval.